Mathematical Sciences: Asymptotics of Large Scale Behavior and Solutions of PDE's

This research centers on various asymptotics problems of interest in mechanics and physics, including the zero dispersion limit for several nonlinear wave equations, the recovery of the Navier-Stokes equations from the more general Boltzmann equation, and the incompressible limit of the equations of compressible fluid dynamics. The study of complicated nonlinear phenomena often requires the solution of simplified forms of the governing equations. One of the best ways of achieving this is to use the naturally occurring length and time scales of the problem to simplify the problem while retaining the essential physics. The proposed research will advance our knowledge of fluid flow phenomena by performing this simplification on a number of important problems.